CAREER: Nonlinear Inversion of Remotely Sensed Ocean Data Using Artificial Neural Networks

9503042 Kasilingam The PI's career plan is to develop an integrated remote sensing program at the University of Massachusetts, Dartmouth. The program will have an emphasis on marine related remote sensing in accordance with the needs of the local region. The PI's research plan will focus on developing advanced signal processing techniques for extracting information from remotely sensed data from the ocean. With this goal in mind, it is proposed to develop a technique based on artificial neural networks to extract ocean surface wave information from synthetic aperture radar images of the ocean and to improve wind speed and directional estimates from radar scatterometers. The two tier approach is expected to test the applicability of this technique to both imaging and non-imaging applications. Through a grant from the Engineering Foundation the PI is currently supporting a graduate student for a year to study the properties of artificial neural networks and how they may be utilized for nonlinear mapping applications such as the two proposed projects. It is planned to continue this effort as a part of the proposed research program. The ultimate research objective is to use remotely sensed field data along with in-situ measurements to test the inversion schemes. If successfully completed, the technique is expected to provide greater insights into the physics of the measurement processes. There is also the potential for using similar techniques in other areas of ocean remote sensing such as marine pollution monitoring. ***